POWRE: Distance Graphs and Channel Assignment Problems

This project initiates further research on the fields of distance
graphs and the channel assignment (also named T-coloring). Both
fields have been active research areas for years.

There are two major components in this project. The first one
extends research on problems on distance graphs and T-coloring
and their connections. The first connection between distance
graphs and T-coloring was proved by the PI [1997] and was used to
obtain extend solutions on a problem on distance graphs raised
and studied by Eggleton, Erdos and Skilton [1985]. A joint work
with Chang and Zhu [1997] completely solved the problem and
proved the second connection which showed that the fractional
chromatic number of a distance graph is equal to its asymptotic
T-coloring ratio. The latter parameter was shown, by Griggs and
the PI [1996], to be closely related to an earlier number theory
problem, namely, density of sequences with missing differences,
studied by Cantor and Gordon [1975] and by Haralambis [1977]. The
project will follow this direction of research to explore other
useful connections between distance graphs and T-coloring, to
obtain further results on distance graphs including their
chromatic number, circular chromatic number and fractional
chromatic number, and to study a generalization of the problem of
Eggleton, Erdos and Skilton.

Motivated from practical situations in the channel assignment
problem, several variations of T-coloring have been studied. The
second part of this project will extend the research of the PI's
past and current work and joint work on two variations of
T-coloring, namely, no-hole T-coloring and distance two labelings
of graphs. Research on the distance two labelings will also
benefit the practical two-level-interference channel assignment
problem.

For update references and works of this project, readers are
welcome to visit the PI's web site at:
www.calstatela.edu/faculty/dliu/dliu.htm or email to:
[email].

This POWRE project is supported by the MPS Office of Multidisciplinary Activities (OMA).